Family ASTRO

9901892
FRAKNOI

The Astronomical Society of the Pacific requests $1,348,428 to enhance the dissemination of Project ASTRO in communities by building new capability into an existing network to serve the "whole family". Family ASTRO will consist of the following components:

Six Family Astronomy Kits, in English and Spanish, each consisting of a suite of hands-on activities that can be done with simple materials that are available to a wide range of families. All families will have the capability to perform these activities.

A Family Astronomy Events Manual to help partners and site leaders use star parties, Sun, Moon, and Shadows sessions, and other larger group astronomy events into the project.

Training protocols and materials at three levels: to train the families in doing astronomy activities directly, to train the astronomy/teachers partners to work with families and to train regional site leaders on the best ways to work with their local partners to start their own Family ASTRO program.

The project will have a strong focus on families of underserved populations in science by continuing the work of Project ASTRO sites in urban areas such as Chicago and San Francisco, and in rural areas like southern New Mexico.